The Wave Equation Isn't As Simple As You Thought

Profs. Manogue and Dray will investigate topics in mathematical physics connected with the behavior of waves in unusual geometries due to gravitational fields. These studies may help to understand possible phenomena to be expected in a quantum theory of gravitation. Among the topics to be investigated are the effects of change in topology and signature of the matric; field theory in rotating spacetimes; and the octonionic superstring.